Shipboard Scientific Support Equipment

ABSTRACT

02 August 2010
Proposal Number: 1019033
Institution: San Jose State University, Moss Landing Marine Labs
PI: S. Lamerdin
Co-PI: K. Coale

The proposal requests three Shipboard Scientific Support Equipment (SSSE) items for the San Jose State University, Moss Landing Marine Labs (MLML) for use aboard the R/V POINT SUR; namely a new depth sounding/electronic charting system, hydraulic system integration, and an over-boarding block. All items will either enhance safety, bring the vessel into compliance with current standards, or provide greatly improved support capabilities to science.

Broader Impacts: The R/V POINT SUR supports federally funded scientific research in the Pacific Northwest in order to expand human knowledge of the ocean environment. During operations, the vessel routinely exposes graduate and undergraduate students to seagoing oceanography. Pubic outreach is also achieved through the State’s Center for Integrative Coastal Observation, Research and Education program (CI-CORE) and the Alliance for Coastal Technologies program (ACT), real-time satellite connectivity from ship to shore, and open house events. The POINT SUR is scheduled to complete over 100 NSF sponsored days in 2010.